Computational Aspects of Rewrite Operations

Term rewriting systems have gained considerable attention in recent years for being a convenient tool in programming languages, automated deduction, data type specification and verification, computer algebra, and as a bridge between logic and programming. The theory of term rewriting has developed rapidly and new areas of applications are being explored. However, not much seems to be known about the computational aspects of rewrite operations. This proposal addresses the basic operations that are pertinent to rewriting and the means to design and analyze the associated algorithms. Both practical algorithms and lower bound complexities, on sequential and parallel machines, will be studied. Research in the design of good algorithms for rewrite operations will be useful in improving the efficienty of rewrite-based systems as well as in providing an understanding into the inherent complexities and limitations of rewrite methods.